REU: Biosystematic Research Experiences for Undergraduate Students

This award will establish an REU site in the Science and Technology Department at Peru State College. The REU site will: 1) provide scientific research training to undergraduate biology students in a small rural college (FTE = 1,500), 2) integrate students with established scientists who will be involved in implementing student research projects, and 3) further the scientific knowledge of biosystematics and evolutionary theory. Eight undergraduate students were selected to work on research projects. The areas of research to be examined by students are insect chemosystematics, insect morphometrics, central and marginal population theory, and classical taxonomy. These projects were selected to give all student participants a full range of exposure to the multifaceted disciplines of science. Individual research protocols were developed by the principal investigator and faculty associate in conjunction with the students working within this program. Each student is responsible for the planning of experiments to be conducted. In addition, seven research advisors from other colleges and universities will work with students during the final planning, data gathering, and data analysis stages of this project. The goal of this undergraduate research program is to involve students from the planning stage through the completion and publication of results.